Coupling of Tropical Motion Systems with Convection

Dr. Yanai and his colleagues seek to clarify the relationship between cumulus convection and large-scale atmospheric motion in the tropics. The principal methodology is to conduct diagnostic analyses of observations using, in this case, the data obtained during the TOGA-COARE experiment in the tropical Pacific. The three major components of the project are: (1) an examination of the role of cumulus convection in the maintenance of the Madden-Julian oscillation (MJO) by quantitatively evaluating the terms of the perturbation kinetic energy and available potential energy equations; (2) a study of the nature of coupling between convective heating and the large-scale motion using statistical analysis of basic modes of cumulus heating and drying and their association with the MJO and other tropical wave disturbances; and (3) a combined analysis of the large-scale momentum budget residual and modes of mesoscale convective organization to advance parameterization of cumulus transport of momentum.

Understanding the relationship between the cumulus clouds and the larger scale has eluded researchers for many years. It is critical to the development of numerical models that can adequately simulate and forecast global weather and climate. Dr. Yanai's research may provide some of the necessary insights to advance knowledge in this area.